Collaborative Research: Worm algorithm and Diagrammatic Monte Carlo in atomic and condensed matter physics

The Collaborative Research project of the University of Massachusetts and Staten
Island College (CSI) of the City University of New York, currently supported by NSF
under Grants PHY-0426881 and PHY-0426814|is studying collective phenomena in
trapped ultra-cold atomic Fermi gases, multi-component condensates in optical lattices,
the supersolid state of 4He and the theory of deconfined criticality by the state-of-the-art
Monte Carlo (MC) approaches. The numeric schemes will be based on Worm algorithm
(WA) and Diagrammatic Monte Carlo (DMC)|generic high-performance techniques
introduced by the research team for simulations of systems with topologically complex
configuration spaces and large numbers of continuous variables.